Resilient and Scalable Near-Real-Time EM Sensing of Unknown Signals

This project addresses a critical need in modern society: the efficient and secure management of the electromagnetic spectrum, which is foundational to countless technologies that power our daily lives, from communications and navigation to national defense and economic infrastructure. As spectrum becomes increasingly crowded due to the proliferation of wireless devices and emerging applications, ensuring fair, reliable, and dynamic access is essential for maintaining United States' technological leadership, economic growth, and national security. The proposed research aims to revolutionize how spectrum is managed by developing advanced, autonomous sensing technologies that can rapidly and comprehensively monitor spectrum usage across all relevant dimensions including frequency, space, and time. This will enable smarter and more adaptive spectrum sharing, reduce interference, and unlock underutilized resources, ultimately benefiting society through improved wireless services, enhanced safety and security, and greater innovations. Beyond technical advancements, the project also emphasizes broad societal impacts by integrating research with education and outreach, including efforts to inspire the next generation of scientists and engineers through engagement with local schools.

The project will develop a novel, autonomous electromagnetic (EM) sensing microelectronic system that operates across spectral, spatial, and temporal domains, achieving near real-time responsiveness, high sensitivity, and adaptability to unknown or arbitrary signals. The research is structured around four key tasks: (1) creating autonomous, near-real-time beam tracking using analog cross-correlation for wideband, low-power, and resilient operation; (2) designing a novel scalable daisy chain semiconductor integrated circuit architecture to support large sensor arrays while maintaining robustness against hardware imperfections and synchronization challenges; (3) implementing rapid high-accuracy spectral sensing through passive beamforming to maximize linearity, sensitivity, and energy efficiency; and (4) enabling full field-of-view coverage with simultaneous multi-directional and multi-beam sensing, minimizing interference and implementation overhead. These innovations collectively aim to advance the state of the art in spectrum sensing, enabling dynamic, full-awareness spectrum management and sharing. The anticipated outcomes include not only technical breakthroughs in wireless system performance (such as improved range, reliability, and coexistence of diverse systems) but also foundational contributions to the scientific understanding of comprehensive EM sensing, with results disseminated through publications and educational outreach.